Rain Forest Trail and Living Treasures of the Congo Gallery

9552543 Gwynne The Wildlife Conservation Society will use this one year award to move forward their planning for the "Rain Forest Trail and the Living Treasures of the Congo Gallery." This is the first phase of an ambitious $29M, 6 acre outdoor exhibit area focusing on the Congo Rain Forest and an indoor Environmental Education Complex. The Wildlife Conservation Society (WCS) conducts extensive field research in a number of central African sites and has an important living collection of tropical African wildlife in the New York facility. The Congo Rain Forest/Environmental Education Center will include three major interpretive areas and an educational resource area. NSF is being asked to support two components of the Congo Rain Forest complex which are the Rain Forest Trail and Living Treasures of the Congo Gallery. The Rain Forest Trail, with both indoor and outdoor elements, will be a total immersion exhibit where visitors will be surrounded by a replication of an African rain forest and will have the opportunity to encounter a variety of its living inhabitants, and experience how its ecosystem functions. They will have the experience of making scientific observations thus gaining insight into how scientists work. The goal of this design technique "is to move beyond the limited scope of traditional zoo exhibits (which simply portray the 'animal as object')", toward a presentation of animal and plant communities as they interact within an ecosystem. The Living Treasures Gallery will be a 4000 sq. ft. space which is dedicated to the introduction of the diversity of rain forest inhabitants, their environmental adaptations, and complex interrelationships. The gallery will be divided into four areas: Adaptations for Survival, The Forest of the Megavertebrates, The Interconnected Forest, and Seeing the Unseen. Numerous interactive devices will be developed to engage the visitor in hands-on activities and materials will be developed that link the themes of the exhibit with the agenda of formal education for both teacher and students.